Curvature and Metric Geometry

Abstract Proposal: DMS-9803171 Principal Investigator: Jeff Cheeger The main thrust of this project is to study the analytic, geometric and topological properties of various classes of metric measure spaces, which while typically much more singular than smooth riemannian manifolds, have enough good properties to give rise to rich and interesting theories. Specifically, we consider measured Gromov-Haudorff limits of (possibly collapsing) sequences of riemannian manifolds with a definite lower (or two sided) Ricci curvature bound (including Einstein manifolds), corresponding limits of manifolds with a definite two sided sectional curvature bound and metric measure spaces (possibly fractal in nature) which satisfy a doubling condition on the measure and a Poincar'e inequality. A central concern is that of proving ``partial regularity theorems''. Such theorems assert that the underlying space is regular (in a suitable sense) off a set which is of measure zero or even of some definite positive codimension. Throughout mathematics and physics one finds a tension between the notions of ``regularity'' and ``singularity''. For instance, a ``typical'' object (one which is chosen completely at random) will, with high probability, be very irregular (or even singular). On the other hand, the most fundamental geometric shapes, say that of round sphere, exhibit symmetry, homgeneiety, and smoothness. In any event, in many (if not most) problems of interest, singularities are simply ``there'' and cannot be avoided (e.g. ``black holes''). In such cases, in becomes important to study the extent and structure of the singularities. This is precisely the focus of our project. We consider the problem for some very general but extremly natural classes of geometric objects.